Titanic Science: Exploring New Methods of Interpretation

9813762 Andorfer The Maryland Science Center is planning a nationwide, traveling exhibit that would examine the scientific investigations and findings related to how and why the Titanic sank. During this planning phase for the project, two of the Maryland Science Center staff would participate in an upcoming scientific expedition to study the Titanic. They will be able to closely follow the work of the Marine Forensics Panel of the Society of Naval Architects and Marine Engineers in order to understand more thoroughly the scientific processes and principles involved. The museum staff also will refine the design of the exhibit and test prototype exhibit components, themes, styles, and presentation of science.